Life Cycle Assessment IX Conference Support

0936426
Schenck

This grant is to support the participation of approximately 30 students in the "Life Cycle Assessment IX Conference," which be held Boston, Massachusetts, September 29-Otober 2, 2009. The conference brings together the LCA community from the U.S., Canada, Mexico, and other countries. Conference topics will include LCA standards, ecosystem services assessment, biodiversity modeling in LCA, "footprinting" (carbon, water, energy), etc.